Collaborative Research: A Holistic Approach to Modeling Galaxy Clusters

The team will perform numerous state-of-the-art simulations of galaxy clusters spanning a large range in
mass. The simulations will incorporate observationally-constrained
models for feedback from star formation and supermassive black holes,
along with a novel treatment of chemical evolution. The
aims are twofold: (1) Establish a unified description for the
evolution of the galaxies, the supermassive black holes, and the hot
tenuous gas within the clusters; (2) Determine the key observable
signatures that constrain the interplay between the processes of
galaxy feedback and the growth of structure in the Universe. These
efforts constitute a self-consistent, holistic approach to feedback that will be able to account for multifaceted
properties observed across all mass scales. The team will continue its
involvement in an established, successful STEM program. The research
will increase the physical realism of the simulations, increasing the
appeal of the image products released to the public.